Dissertation Research: Architectural Patterns and Political Organization in the Prehistoric Southwest

Under the direction of Dr. Stephen Plog, Ms. Mary Metcalf will collect data for her doctoral dissertation. She will visit a number of archaeological repositories in the United States and study the notes and drawings of archaeologists who excavated prehistoric Anasazi sites in the U.S. Southwest. The goal of this work is to understand the political and social organization of these prehistoric peoples and the extent to which their society was organized along egalitarian or hierarchical lines. To do this, Ms. Metcalf will work primarily with site plans and descriptions of site architecture. She will calculate the areal extent and number of buildings devoted to public as opposed to family activities. She will also look at methods of construction and amount of labor which were devoted to each. Finally she will examine the location of public areas to determine the extent their access was restricted. A large number of sites covering three geographical areas and spanning several hundred years will be examined and by means of comparison Ms. Metcalf will determine how political organization changed over time. Without writing and with a relatively simple technology the prehistoric Anasazi peoples of the U.S. Southwest constructed large multistory stone and adobe structures consisting of hundreds of rooms. Their society integrated thousands of peoples and constructed roads to move goods over long distances. They accomplished this in arid and unpredictable environmental conditions. Archaeologists wish to understand the political and social system which made this achievement possible. To date they do not know the extent to which centralized political organization existed. While some reseachers believe that this level of development can take place in a relatively "egalitarian" context, others believe that accomplishments of this kind are not possible in such a situation. Ms. Metcalf's research should help to answer this question. This research is important for several reasons. It will increase our understanding of how complex societies arise. It will provide data of interest to many archaeologists and shed new light on one of the highpoints of Native American culture. It will also assist in the training of a promising young scientist.